The Sixth SOHO and GONG 1998 Workshop; Boston, Massachusetts; June 1-4, 1998

This workshop is a joint Global Oscillation Network Group (GONG) and Solar and Heliospheric Observatory (SOHO) meeting focusing on the solar interior and prospects for similar studies on solar-like stars. Working group sessions, plenary discussions, and poster sessions will address topics such as the observational status of low-, medium-, and high-degree p-modes characterization, low-frequency g-mode detection, solar structure and dynamics, mode excitation and damping, and theoretical advances in local helioseismology.